AMSER: Applied Math and Science Education Repository

Interdisciplinary (99)

The Applied Math and Science Education Repository (AMSER) is a collaborative NSDL Pathways project designed to help meet the needs of community and technical colleges, and forge a link between the colleges and the NSDL. Project partners include the Internet Scout Project, MERLOT, the American Association of Community Colleges, the City College of San Francisco, projects of NSF's Advanced Technological Education program, the Tennessee Board of Regents, the Virginia Community College System, and others. The project provides several innovative ways to connect students and faculty with the NSDL and with the applied math and science resources available through AMSER. AMSER consists of an applied mathematics and science educational resource collection, a customized portal to aid community college students and educators in locating and accessing those resources, and a variety of integrated services designed specifically to enhance the learning experiences of community college students and the teaching capabilities of instructors at those institutions. Services designed and carried out by AMSER include a mixture of technology based ones and hands-on training. The development of these services, and AMSER as a whole, is informed by the target community with focus groups, an advisory board, and a user advisory group.